Workshop on Novice Abilities In Locating Software Bugs

Computer Science (32)

The Workshop on Novice Abilities In Locating Software Bugs is considering the idea that while debugging is recognized as both a key concept and source of difficulty for novice programmers, it is rarely explicitly taught.

Intellectual Merit: The workshop is exploring the range and breadth of strategies novice students use to locate bugs in the programs they write. This information is contributing to the core of recent multi-institutional, evidence-based studies on the skills of novice-level programmers.

Broader Impacts: Ultimately, by identifying common strategies students use in locating bugs, educators will be able to better target curricular interventions and guide students in productive debugging strategies.